Postdoctoral Research Fellowships in Chemistry

Dr. David Leitner has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Leitner's doctoral degree was from the University of Chicago under the supervision of Professor R. Stephen Berry. Dr. Leitner intends to continue research at the University of Heidelberg under the sponsorship of Professor Lorenz Cederbaum. Dr. Leitner's area of postdoctoral research and training will be theoretical studies dealing with the calculation of vibronically-coupled spectra. Longer term, he plans to apply these studies to the calculation of spectra of non-Born-Oppenheimer systems such as the methane cation. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.Ds and attract them into meaningful careers in contemporary chemical research and teaching.